The Dynamics of Rural Industrialization: Comparative Studies of the Re-Organization of Work

9410580 HART Although emerging patterns of rural industrialization are part of an integrated set of global processes, characterized in part by capital mobility and the declining power of labor unions, these processes are experienced in different ways in different settings. The purpose of this study is to investigate the processes of agrarian reform and rural industrialization in South Africa and Malaysia to identify the commonalities and divergent paths of local, rural economies set within an integrating global system. This research rests on a framework in which the particular form and trajectory of rural transformation (in terms of sectoral and distributional change) hinge on local power structures, institutional arrangements, and types of resource access and use. These factors are examined within the specific context of macro-economic and macro-political structures and processes. Ethnographic, longitudinal, and comparative analysis methods will be used to apply this framework to the conditions and dynamics of rural change in the two settings. Both South Africa and Malaysia have experienced initial state development efforts and, more recently, unplanned industrial decentralization into selected rural areas, yet the circumstances, mechanisms, outcomes, and implications for the distribution of power and development vary substantially between them. This study will make two levels of contributions. At a practical level it will help to inform policy debates in South Africa. Questions of rural industrialization in South Africa assume particular significance in light of World Bank-led discussions of agrarian reform and economic development in the new South African political regime. At a more theoretical and methodological level, the proposed study will contribute to bridging the gap between "first world" and "third world" literature and debates on the socio-spatial reorganization of work.